STTR PHASE I: Strontium Barium Niobate Waveguide and Device Technologies for Optical Communications

9632299 Tayebati This Phase I STTR project will produce efficient Strontium Barium Niobate (SBN) thin films based devices and components. Currently available nonlinear materials such as LiNbO3 (lithium niobate), BaTiO3 (barium titanate) and PLZT (lead (lanthanum) titanate-zirconate) do not have the necessary physical constants to make efficient devices in terms of power consumption and driving voltages required for operations. SBN provides a material with extremely large electro-optic coefficient (1380pm/V for SBN:75 compared to 30 pm/V for LiNbO3) that can greatly improve the performance of existing nonlinear optical devices and components. Growth of highly electro-optic nonlinear materials can provide the key for enabling the production of efficient optical components such as tunable filters and modulators for optical communications. In addition, these devices can be used as a building block for systems including optical sensors, and interferometers.